Collaborative Research: FET: Quantum Inference with Pauli Measurements: Fundamental limits and algorithms

Quantum systems offer powerful new ways to process information; however, they are fundamentally harder to understand than classical systems. A central challenge is determining how much information can be learned using quantum measurements that are realistic to implement. While some quantum measurements can extract a large amount of information, they often require complex and resource-intensive operations. Others are much easier to perform with current technology but are less well understood. This project focuses on Pauli measurements, a widely used and experimentally accessible class of measurements that provides a practical way to probe quantum systems. Despite their importance and storied history, we still lack a clear understanding of how much information these measurements can reveal and how efficiently they can be used.

The research will investigate the fundamental limits of learning from quantum systems using the practical Pauli measurements and develop new algorithms for key tasks such as reconstructing quantum states (tomography) and verifying quantum entanglement. By combining ideas from information theory, statistics, and computer science, the project aims to create efficient and reliable methods for analyzing quantum systems under realistic experimental conditions. Overall, this work will help bridge the gap between theoretical advances and practical implementation, supporting the development of scalable and reliable quantum technologies.